Group Travel for MG IX - July 2-8, 2000

This award will provide travel funds to enable 15 U.S. scientists to attend MG IX (the ninth triennial Marcel Grossman Meeting on Recent Developments in Theoretical and Experimental General Relativity, Gravitation, and Relativistic Field Theories. This meeting will be held in Rome, Italy from July 2 to July 8, 2000. Availability of funds will be announced, and then applications by prospective conference participants will be reviewed by a panel of experienced U.S. scientists.